Statistical Theory for Automatic Learning

The purpose of this grant is to provide funding to allow the principal investigator to spend time reorienting the original proposal so that its aims are more consistent with current National Science Foundation programs. Additionally, some funds for foreign travel are requested so that the PI can attend the NATO workshop, "Nonparametric Functional Estimation and Related Topics," to which he has been invited and which is very germane to the proposal topic.